NeTS: Fundamentals of Integrated Sensing, Communication, and Computing for Mission-Critical Reconfigurable UAV Networks

Natural disasters such as hurricanes, floods, and wildfires often damage infrastructure and disrupt communications when timely information is critically needed. Uncrewed Aerial Vehicle (UAV) networks can provide situational awareness, assess damage, locate survivors, and restore connectivity in affected areas. However, current UAV systems typically perform sensing, communication, and computing as separate functions, limiting their efficiency and adaptability in dynamic, infrastructure-denied environments. This project will establish scientific foundations for mission-critical reconfigurable UAV networks (MRUNs), which tightly integrate sensing, communication, and computing to enhance resilience, autonomy, and operational effectiveness. The project will strengthen the ability to respond to disasters and emergencies, support applications in environmental monitoring, intelligent transportation, and public safety, and contribute to the development of next-generation wireless and autonomous systems. Broader impacts include interdisciplinary workforce development and training through summer programs and UAV demonstrations.

This project investigates the theory, algorithms, and architecture required to enable distributed Integrated Sensing and Communication (ISAC) in mission-critical UAV swarms. The research comprises three integrated thrusts. The first develops a wideband ISAC framework that jointly optimizes sensing and communication under UAV mobility, Doppler effects, and dynamic swarm geometries through adaptive waveform design, geometry-aware deployment, and resource-aware optimization. The second introduces a reconfigurable isotropic swarm-array architecture in which UAVs dynamically form volumetric, phase-coherent apertures through mid-flight docking and low-loss radio-frequency interconnects, enabling agile three-dimensional beam control and enhanced sensing capabilities. The third develops a reconfigurable airborne edge-computing platform that enables heterogeneous UAVs to share sensing, communication, and computing resources through dynamic docking and task migration. The project outcomes include new theory for correlated three-dimensional swarm deployments, optimization methods to jointly manage sensing, communication, beamforming, and energy resources, isotropic swarm-array architecture for UAV networks, and an airborne edge-computing framework supporting ultra-low-latency swarm intelligence. Collectively, these advances will establish a new paradigm for adaptive, scalable, and resilient UAV networks operating in infrastructure-denied and adversarial environments.